A Comprehensive Scholarship Program in Support of the Development of the High-Technology Workforce of the United States

This proposal seeks funds to recruit and retain 29 students from the community college transfer population in the Mathematics and statistics department as well as the computer science department. It will target the financially needy student with special attention being given to the enrollment of women and other under represented minorities. The students will come from either community college transfers or current junior and senior programs. In the previous CSEMS program the university funded 10 talented freshmen to participate in the program with the other CSEMS selected scholars. The recruiting program detailed here is innovative, careful and well supported by the University.